Gain Resonances and Transit-Time Effects in High-Frequency Heterojunction Bipolar Transistors

This project will examine heterojunction bipolar transistors at high frequencies. There is a predicted resonance above about 60 GHz which the PI will attempt to find experimentally. The transistor will be designed to move the resonance to the experimentally accessible range below 40 GHz. The next stage of the project is to optimize the device design to the maximum possible frequency performance.